Nationwide Data-Base Clearinghouse on Fellowship Support andGraduate Study Opportunities for Minority Students

This proposal addresses the national problem of finding viable minority applicants to match with graduate programs/fellowship study opportuni- ties. The proposal requests funds from The National Science Foundation to design and establish a nationwide data-base clearinghouse to match funding sources, graduate programs and minority student applicants. The objectives of the data-base clearinghouse are: 1) to centralize information on graduate study opportunities for minority students to facilitate matching funds/programs/applicants; 2) improve the distri- bution of existing resources; and, 3) serve a wider range of students to increase the representation of minority students in graduate programs. The project will result in subscribers - graduate schools, minority students and fellowship programs - being able to access the data-base from anywhere in the country through telecommunication hookups and thus, be able to locate highly qualified minority applicants.